NSF Young Investigator

The goal is to develop intelligent software agents to assist naive computer users. Several softbots (software robots) for Unix have been developed. The softbots accept a diverse set of high-level goals, synthesize and execute plans to satisfy the goals in real time, and learn from their experience.